Robustness Analysis of Self-Tuning Controllers

Recently, an issue which has emerged as being important for practical applications, is the behavior of adaptive controllers in practical realistic environments, where the assumptions made in the idealized nominal theory are not satisfied. This research program analyzes the robustness problem for stochastic self-tuning controllers. Other issues such as presence of measurement noise, stray excitations 'picked up' by the system, etc., will also be addressed and attention will be given to the utility of remedies proposed. Moreover, the research will also deal with some properties which are totally intrinsic to adaptive algorithms, and show how these properties manifest themselves in applications.